Purchase of 500 MHz NMR

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Miami will acquire a 500 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) fullerene derivatives and the higher fullerenes; b) structural studies of alpha-aminoorganolithiums; c) natural products from marine algae; and d) novel redox self-assembling systems.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including materials chemistry.